Solidification Front Instability and Silicic Chaos in Basaltic Sills

Compositionally disparate or bimodal magmas simultaneously occupying the same chamber have been inferred since the very beginnings of igneous petrology. This award supports a series of field-based investigations, centered around the diabase sills of Antarctica, some of which are perhaps the best examples of bimodal fractionation (solidification front instability-ıSFI!), and augmented by experimental and analytical investigations, to delineate the physics and chemistry of SFI. Similar, complementary field studies will also be undertaken at the Stott Mountain, Oregon, and Zora, Pennsylvania involving, silicic lenses in gabbro and voluminous bulbous granophyre at their upper contact of a large diabase sheet.